Holistic Numerical Methods: A Prototype

Engineering - Other (59)

This project is developing, evaluating, and disseminating web-based modules for courses on numerical methods and for upper-level engineering courses using numerical methods. The two prototype modules concern nonlinear equations and interpolation. The modules allow user-customization of content based on engineering major and mathematical package used. The effort provides the basis for a full development proposal focusing on eight mathematical procedures taught in typical undergraduate numerical analysis courses. The project includes an evaluation study to compare the performance of students who have and have not used the modules on specially designed tests. Dissemination efforts include posting material on the course web page and on web site hubs for mathematical packages and sharing the results at engineering education conferences and in engineering education journals.